Instrumentation for an Advanced Undergraduate Genetics Curriculum

The purpose of this project is to develop a modern Advanced Genetics curriculum. The course developments being funded include laboratory courses in Somatic Cell Genetics and Microbial Genetics. These courses teach concepts and techniques of modern genetic approaches to answering questions about biological structure and function. Specifically, course development is employing new equipment for the culture, observation and storage of animal cells, including CO2- regulated incubators, biological containment hoods, inverted phase- contrast microscopes, and cryogenic freezers. In addition, gel electrophoresis apparatus and other equipment are being acquired for the biochemical analysis of alterations in gene expression that can be detected in cell culture and microbial models. In addition to these specific course developments, the equipment permits a greater involvement of undergraduates in meaningful individual directed-research projects. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.